The Network For Inquiry In Mathematics Education

ESI 9553908 Davenport, Linda The Network for Inquiry in Mathematics Education (NIME) is designed to pilot a case-based, professional-development curriculum which was created by teachers and staff participating in the Teaching to the Big Ideas project. Written for elementary teachers, the two modules of the curriculum, Building a System of Tens and Making Meaning for Operations, comprise a 48-hour course. The pilot has been designed to address the following questions: What do teacher- participants learn from the curriculum? When participants in the course are teacher-leaders, what do they learn to support their work in that role? What issues are faced by facilitators as they teach from the curriculum? Our findings will guide curriculum revisions.